Characterization of mRNA Instability Determinants

The overall process of gene expression involves several events including transcription, RNA processing, mRNA degradation, translation, and post-translational protein modification. Very little is known concerning the mechanism or regulation of mRNA degradation. The focus of the proposed experiments is to characterize mRNA instability sequences that determine the rapid decay rate of labile mRNAs. An instability determinant originating from the E. coli chloramphenicol acetyltransferase gene has been identified (287R) that can function in a cis-dominant manner to destabilize the normally stablw ompA mRNA. Several approaches will be used to characterize the 287R instability determinant. 1) Deletions will be introduced into the sequence to identify the smallest sequence that still has destabilizing activity. 2) Site- directed mutagenesis will be used to further define the minimum instability sequence and to probe the functional importance of potential structures within the sequence. 3) The ribonuclease that recognizes this instability sequence will be identified. Initially the function of the instability sequence will be tested in mutants defective in known ribonucleases. If these experiments indicate that a novel ribonuclease interacts with the 287R sequence, it will be isolated and characterized. An in vitro decay assay will be developed and used to monitor enzyme purification. 4) If time permits, the effect of this instability determinant on growth rate regulation of ompA mRNA decay in E. coli will also be investigated. %%% The goal of this project is to elucidated the mechanisms by which cells degrade messenger RNA molecules. mRNA degradation is a basic metabolic process and is vital to the organism's survival and adaptation abilities. The decay rate of a particular mRNA can influence the amount of protein synthesized from that transcript and thereby have a critical impact on the expression levels of the corresponding gene. The experiments outlined in this proposal will characterize elements within mRNAs called instability determinants that result in the rapid decay of labile mRNAs. The sequences or structures that are required for the function of an instability determinant will be defined, and the cellular enzymes that recognizes these sequences will be identified.